SHF: Small: Ordering-Based Semantics for Emerging Models of Parallel Computing

With the proliferation of multicore processors has come resurgence
of interest in parallel programming languages and models,
particularly those intended to make it easier for non-expert
programmers to correctly implement important classes of parallel
applications. Unfortunately, most such languages and models are
informally -- and thus imprecisely -- defined. The aim of the
sponsored research is to develop more formal definitions, which will
be needed in order to truly understand and reason about programs,
guide language implementations, and verify implementation
correctness. Within computer science and allied fields, formal
definitions will facilitate the transition to ubiquitous parallel
computing. For society at large, this transition will be essential
to maintain the momentum of the IT revolution, across government,
industry, science, the arts, and entertainment.

The technical core of the sponsored research is the use of
history-based executions to capture both the behavior of individual
threads of control and the interactions among those threads. In a
departure from previous work, the interactions are always expressed
in terms of atomic blocks, which can capture arbitrary
language-level synchronization mechanisms. Specific topics being
addressed include transactional memory (including the concepts of
publication and privatization), explicit speculation, and
determinism. The notion of determinism, in particular, is central
to several emerging languages and models specifically intended for
non-expert programmers. A formal framework for the definition of
determinism will allow alternative definitions to be compared,
contrasted, and correctly implemented.